IMD - The Development of Innovative Texts to Support Guided Science Teaching

9911313
PALINCSAR

This project will develop text-based instructional materials that allow the interweaving of 1st- and 2nd-hand investigations in order to maximize children's learning about the products of science as well as the nature of scientific reasoning. These materials are modeled after a scientist's notebook: a new genre that they developed to promote the maintenance of an inquiry stance while conducting investigation with text. These notebook texts are tailored to elementary school science curricula in grades one through five: Insights, Science and Technology for Children (STC), and Full Option Science Study (FOSS).